Exploratory Ellipsometric Studies of Silicon-Germanium- Carbon Alloys and Other Emerging Materials

9413492 Zollner It is proposed to convert an existing single-wavelength ellipsometer with a rotating analyzer to a spectroscopic ellipsometer and to investigate the optical properties of ternary silicon-germanium-carbon alloys which may have optoelectronic applications. Preliminary ellipsometric measurements will be performed on other classes of emerging materials, such as titanium-silicon-tin, which has possible applications in the automotive industry as a thermocouple material. %%% Same ***